Research in Low Energy Nuclear Physics

This grant supports research and operation of the Princeton Cyclotron Laboratory. The group will carry out measurements at the frontiers of nuclear physics, nuclear astrophysics, and fundamental symmetries and interactions. The experiments will extend the search for time reversal invariance in nuclear systems, for meson exchange currents in beta decay, and for axion-like particles in electron-positron interactions. Other experiments will use specially developed equipment to study the properties of nuclei far from stability. A series of measurements using the Princeton QDDD magnetic spectrometer will provide new date concerning astrophysical processes that occurred in the early moments of the universe. A related program of accelerator improvement and of advanced instrumentation development will continue. The accelerator improvements are aimed at increasing both performance and reliability. The instrumentation research and development will include work on bolometer radiation detectors. The Cyclotron Laboratory is used for research and for graduate student training by a large number of user groups from other universities, in addition to those from Princeton.